Accomplishment Based Renewal: Geometry and Kinematics of Upper Crustal Construction at Fast- to Intermediate Rate Mid-Ocean Ridge Spreading Centers

This program will lead to a comprehensive review of available geological data from cross-sectional views of the uppermost oceanic crust fromed at fast to intermediate spreading mid-ocean ridges. New data will be acquired from the Macquarie Island ophiolite.